Role of HMG-I(Y) Proteins in Chromatin Structure and Function

Abstract 9405332 Members of the mammalian HMG-I(Y) family of "high mobility group" (HMG) nonhistone chromatin proteins are of considerable current interest because they appear to play important roles in the chromosome structural changes occurring during the cell cycle and also because they have recently been demonstrated to participate in the transcriptional regulation of a number of inducible mammalian genes in vivo. The HMG-I(Y) proteins are distinguished from other HMG proteins by their ability to specifically bind to stretches of A-T rich DNA both in vitro and in vivo. Available evidence suggests two different, though not mutually exclusive, models of how the HMG-I(Y) proteins might function in chromatin as gene transcription regulatory proteins. The first postulates a nucleosome positioning or "phasing" role for HMG-I(Y) whereby binding of the protein to A-T sequences establishes a "boundary" that influences placement of adjacent nucleosomes in important areas such as some gene promoter/enhancer regions. The second model proposes that by inducing bends in substrate DNA HMG-I(Y) facilitates the binding of transcription factors to enhancer sequences and also functions to bring together separated enhancer regions so that they can form a multiprotein complex necessary for transcription initiation. The objectives of a one year research project are to begin initial experiments to critically test certain predictions of the first of these two models. We will employ carefully selected in vitro systems to quantitatively evaluate the binding of HMG-I(Y) to reconstituted monomer and dinucleosomes of defined DNA sequence and investigate whether these proteins can alter nucleosome positioning/phasing in such systems. In addition, we will also initiate experiments employing a newly developed DNA affinity cleaveage procedure to determine both the position and orientation of HMG-I(Y) protein on free substrate DNAs and in chromatin reconstitutes. %%% Members of the ma mmalian HMG-I(Y) family of "high mobility group" (HMG) nonhistone chromatin proteins are of considerable current interest because they appear to play important roles in the chromosome structural changes occurring during the cell cycle and also because they have recently been demonstrated to participate in the transcriptional regulation of a number of inducible mammalian genes in vivo. The HMG-I(Y) proteins are distinguished from other HMG proteins by their ability to specifically bind to stretches of A-T rich DNA in vitro and in vivo. Available evidence suggests two different, though not mutually exclusive, models of how the HMG- I(Y) proteins might function in chromatin as gene transcription regulatory proteins. The first postulates a nucleosome positioning or "phasing" role for HMG-I(Y) whereby binding of the protein to A- T sequences establishes a "boundary" that influences placement of adjacent nucleosomes in important areas such as some gene promoter/enhancer regions. The second model proposes that by inducing bends in substrate DNA HMG-I(Y) facilitates the binding of transcription factors to enhancer sequences and also functions to bring together separated enhancer regions so that they can form a multiprotein complex necessary for transcription initiation. The objectives of a one year research project are to begin initial experiments to critically test certain predictions of the first of these two models. We will employ carefully selected in vitro systems to quantitatively evaluate the binding of HMG-I(Y) to reconstituted monomer and dinucleosomes of defined DNA sequence and investigate whether these proteins can alter nucleosome positioning/phasing in such systems. In addition, we will also initiate experiment employing a newly developed DNA affinity cleaveage procedure to determine both the position and orientation of HMG-I(Y) protein on free substrate DNAs and in chromatin reconstitutes. The findings from these experiments will begin to address, in a precise and quantitative manner, the important question of how the HMG-I(Y) non histone proteins potentially influence the structure and function of reconstituted nucleosomes in vitro. And perhaps more importantly, the results obtained from these in vitro studies will set the parameters for, and define the limits of, future experiments aimed at elucidating the in vivo function of these unusual and intriguing nonhistone proteins. ***